Conference in Harmonic Analysis

Abstract
Capogna/Lanzani

This award will partially support the 24th conference of the University of Arkansas Annual Lecture Series in Mathematical Sciences. The focus of the conference will be Harmonic Analysis, Potential Theory, and Geometric Measure Theory.